Researching Communication and Communicating Research

This proposal requests a continuation of one of the most fruitful products of the SLC program, the annual meeting of students and post-doctoral fellows being trained within the various Science of Learning centers. In the past this conference has led to cross-center research collaborations, and to the creation of a national,and even international, interdisciplinary community of young scholars who are likely to continue to be in touch, cooperate and collaborate throughout their future careers.